Studies of Molecules in Strong Laser Fields

This project in laser-molecule interactions utilizes a femtosecond laser system to probe the behavior of molecules in strong laser fields. The work will attempt to disentangle various effects that influence this behavior, such as bond softening, light-induced bound states, enhanced ionization by electron localization, charge-asymmetric dissociation, and rescattering. Measurements will employ a new technique called correlated ion spectroscopy.